Research Experiences in Pollution Prevention

This award provides funding to Rowan University, Kauser Jahan, Principal Investigator, for the support of a 3-year REU Site Program in Pollution Prevention. This eight-week summer program will involve 9 students with backgrounds in Civil/Environmental/Chemical/Electrical Engineering. This research experience will provide students with a unique opportunity to focus on fundamental/applied research projects that have significant impacts on human health and the environment. The REU research activities will focus on a single unified theme-Pollution Prevention. The REU Site will strengthen the young engineering program at Rowan University, which strongly supports curriculum-wide emphasis on quality undergraduate education integrated with multidisciplinary research.